Additional Chapter to Active Physics Program

An additional chapter on energy conservation is created for the "Home Module of Active Physics." The chapter is based upon the "Rebuild America Program" of the U.S. Department of Energy and co-funded by them. Students assess their school building's energy performance and address standards in conservation of energy and interactions of energy and matter. The module follows the Active Physics model in content, design and pedagogical format, while supporting the Department of Energy's energy education program. "Rebuild America" participates in the dissemination of the module.